Markov Processes in Geometric Environments

Many basic Markov processes evolve on a state space carrying
a related geometric structure. Brownian motion on a Riemannian
manifold, random walks on Cayley graphs of finitely generated
groups and finite Markov chains on
complex combinatorial structures such as trees or matchings
are all primary examples.
This proposal focuses on the relationships between
the behavior of such processes and the properties of
the underlying geometric structure.
It involves problems at the interface between
analysis, geometry and probability with a major role played by
groups and their actions. Potential theory, i.e., the study of
harmonic functions and, more generally, of solutions of the heat equation,
is at the center of many of these considerations.

Random processes play an important role in many aspects of science and
human activity. The study of card shuffling procedures is an entertaining
yet complex and mathematically interesting example.
Various random processes are used to model complex phenomena,
from polymer molecules, to DNA analysis, to image restoration,
to financial markets.
They are also used as crucial tools for efficient computations.
In such cases, there are strong structural constraints underlying the behavior
of these stochastic processes. These constraints are expressed in terms
of the environment of the process
which often has a complex combinatorial or geometric nature.
This proposal focuses on the study of the
fundamental properties of such stochastic processes
and on how they relate to the global structure of the environment.